System-Level Model Validation

This research is to develop a high level, semi-automated process for validating models. The approach is based on the principle of modeling the environment surrounding the system that the model represents. There are four objectives: 1) developing initial sensor models with high-level graphics- based tools that allow one to concentrate on the system mathematics to insure sensor model correctness, 2) refining sensor models over time into a library structure, 3) exploring automated mechanisms for requirements capture and processing and linking the model validation system to specification requirements, and 4) creating a goal tree based test planning system to guide the selection of and development of model tests. Validation of VHDL models of DSP algorithms is being done under this research.